Contruction of a Biomolecular Motor-Powered Nanomechanical Device

9907033
Montemagno
A confluence in scientific advancements associated with molecular biology and nanofabrication technology now offer, for the first time, the potential of engineering functional hybrid organic/inorganic nanomechanical systems. The F1 -ATPase biomolecular motor is capable of generating a force >100 pN, has a calculated no-load rotational velocity of 17 r.p.s., and a diameter of less than 12 nm. These characteristics are consistent with the engineering features associated with current nanomechanical structures. Thus, the objective of this proposal is to produce a nanomechanical device that is powered by the biomolecular motor, F1-ATPase. It is anticipated that this effort will result in a device that will demonstrate the technology for creating a new class of hybrid organic/inorganic devices.
***